Ninth International Conference on Fracture: to be held Sydney, Australia, April 1-5, 1997

9711838 Ritchie PI proposed to organize the International Conference on Fracture (ICF part of IUTAM) to take stock of the major achievements in broad field of fracture and to reflect on future directions. Major conference themes include failure analysis, remaining life assessment, extension and repair, theoretical and computational fracture mechanics, interfacial fracture mechanics, high strain rate fracture and new directions.